Mathematical Modeling and Analysis of Materials

Phillips
DMS-0630496

The investigator and his colleagues organize a conference
with the Society for Natural Philosophy on the topic,
"Mathematical Modeling and Analysis of Materials." The
conference The conference program consists of four elements: the
Truesdell lecture (a distinguished named lecture instituted by
the Society), six lectures by senior researchers, three lectures
given by recent Ph.D.s, and an open forum on future directions.
The conference is widely advertised, specifically seeking
graduate student attendance. Participation of graduate students
and young investigators is especially encouraged by devoting a
large component of the budget to supporting their travel
expenses. The conference themes address mathematical and
physical aspects of the interaction between thermal, electric,
and mechanical properties in novel crystalline and soft matter
systems. The systems addressed include ferroelectric liquid
crystals and polycrystals, and elastomers. Applications include
electro-optical switches for video displays, actuators, sensors
and miniature pumps designed to exploit electro-mechanical
interactions. These are important state-of-the-art applications
that present significant mathematical challenges in their
analyses. The speakers are mathematicians and physicists who
present their research on analysis, modeling, and simulations for
these systems. Several common themes are highlighted. The
natural setting for these systems is in the form of films,
filaments, and thin strips. One theme is the application of
gamma-convergence and compactness techniques to capture
lower-dimensional models. These systems all have complex energy
landscapes with many meta-stable states. A second major theme is
deterministic and stochastic investigations of dielectric and
ferroelectric switching between such states. A third theme is
the investigation of flows in these materials.

The Society for Natural Philosophy Conferences have a
history of being cross-disciplinary endeavors and that spirit is
central to this meeting. The conference is advertised to the
science community and the list of speakers includes physicists
and engineers. A goal of the conference is to expose students
and young researchers to the challenges and open problems in this
area. This is accomplished by supporting the travel expenses for
these people, having young researchers as speakers, and by
holding a session on future directions.